The Dynamics of Open-Ended Decisions

This project develops computational cognitive models of open-ended decision making. Most of decision science focuses on situations where people must choose a single option from a predefined list of options. Much less is known about how people make decisions when they have to come up with the options on their own, when they are allowed to choose multiple options (as in shopping), or when they can ask artificial intelligence for help. To advance decision science, the field requires models that account for people’s cognitive limitations and that quantitatively capture their choices, decision times, and information searches. To do so, this project combines novel laboratory and online decision-making experiments with choice-process measures (e.g., eye movements, hand movements, and decision times) and cognitive models of evidence accumulation to explain behavior in complex open-ended settings. This research provides a foundation of tasks and models upon which future basic and applied research can build in all domains where decision making is relevant. The education and outreach part of the project exposes students of all ages to the exciting work being done in decision science and ensures the pursuit of careers in STEM through research internships, workshops, and public lectures.

This project focused on cognitive modeling of the choice process in open-ended decisions. The research features an innovative approach to study multi-response choice, choices from memory, and choices with assistance from artificial intelligence (AI). The work combines computational cognitive modeling approaches with choice-process data (specifically eye tracking, mouse tracking, and response times) collected from online and laboratory experiments. The overall objectives are to develop and test experimental modeling techniques rooted in cognitive science for decisions that are less constrained than the typical two-alternative forced choice paradigm. This research extends the scope of dynamic choice modeling to settings where decision makers are unconstrained (1) by limits on the number of options they can select, (2) by limits on the number of menus they can peruse, and (3) by having to make decisions on their own, without AI advice. Regarding broader impacts, the project implements a multi-faceted plan aimed at increasing interest, participation, literacy, and retention in the decision sciences, and STEM more broadly, through summer research internships, annual workshops on choice-process data and cognitive-science approaches to decision making, and public lectures.